Characterization of Intrinsic and Doped Hydrogenated Amor phous Silicon Thin Films Produced by Microwave Discharges inToroidal and Linear Plasma Systems

Hydrogenated amorphous silicon films will be deposited using low pressure, continuous microwave discharges in toroidal and linear systems available at Texas Tech University. The liquid sources will be used as a replacement for silane, phosphene, diborane and methane. We plan to use infrared absorption spectroscopy, continuous wave emission and picosecond time-resolved photoluminescence spectroscopy, time of flight measurements, and photoconductivity techniques to characterize the films prepared under a variety of deposition conditions. The liquid sources together with the magnetically confined microwave produced plasma are expected to deposit high quality films at very high growth rates (>10A/s). We are already getting interesting results on intrinsic and carbon doped films deposited in a linear system. Our ultimate goal is to improve the quality of the films by varying various deposition parameters (e.g., microwave power, magnetic field, gas pressure, substrate temperature, etc.) This will finally improve the quality of the devices made from these films. Another goal is to reduce the toxic and explosive risks associated with present film deposition techniques.